Time Optimal Control of Quantum Information Processing Systems

EIA-0218441
Navin Khaneja
Harvard University

Time Optimal Control of Quantum Information Processing Systems

Time optimal control of quantum mechanical systems can significantly minimize decoherence effects in coherent manipulation of quantum pheonomenon. The central theme of the project is to develop a mathematical theory for optimal unitary control of quantum networks. Network of coupled two level quantum systems form the benchmark for a quantum computer. Finding the minimum time it takes to produce a desired unitary evolution in a network of coupled quantum systems is of fundamental practical importance not just in the field of quantum information processing but the whole field of coherent spectroscopy. In particular, focus is on optimal control of network of coupled spin half particles (acting as qubits in liquid and solid state NMR quantum conputing with fixed interaction Hamiltonian and ability to selectively excite some of the qubits. One of the goals of this project is to develop geometric methods for computing fundamental bounds on the minimum time it takes to produce unitary evolution in a network of coupled quantum systems and find time optimal control laws which achieve these bounds.

These methods are based on variational ideas as captured by the theory of optimal control. Finding optimal strategies to control the dynamics of quantum networks can be reduced to problems in Riemannian geometry of computing subriemannian geodesics in certain homogeneous spaces. Using these geometric techniques time optimal control strategies for quantum networks are being computed.